Theory of Cold-Atom Collisions

A theory of cold-atom collisions and highly excited molecular spectra is proposed which stresses the common features of all atomic systems. By combining analytic solutions of a certain class of long-range potentials with the numerical solution of the coupled states problem at short range, it is possible to extract parameters which describe a range of atomic systems. In addition, the approach leads to a more efficient computational procedure which avoids the integration of these equations to very large distances.